CISE Research Instrumentation

A Logic Analyzer with memory will be provided for researchers at the University of Wisconsin Madison for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and engineering program. The research for which the equipment is to be used will be in the area(s) of High-Speed Data Acquisition System for Research in Parallel Computing.